The California Systemic Initiatives Assessment Collaborative

9632273 The Far West Lab for Education Research and Development, a non-profit organization located in California, will complete and pilot an assessment instrument that is appropriate for use in standards-based instruction in science. The project will involve a minimum of 5 educational systemic initiatives (SI) in 7 states. The project will accomplish 5 tasks: 1. Identify and convene teams of teachers to develop appropriate items for standards-based science assessment instruments for Grades 5, 8, and 10. The items will include enhanced, open-ended, and justified multiple-choice items, and performance tasks; they will be evaluated for cultural and gender bias, and offered in English and Spanish. 2. Pilot-test, field-test, and administer the instrument. 3. Score and report the results of the assessment on SI and non-SI students. Data will be disaggregated by ethnicity, gender, and socioeconomic status. Reporting will include comparisons such as: SI vs. non-SI; intra-program (USI vs. USI); and cross-program (USI vs. SSI). 4. Guide professional development for the teachers who will be administering the assessment instrument. 5. Disseminate the items to other SIs in other states, cities, and regions. ***